Planning for the Future of LPA-Harborside, A School within a Workplace at Harbor Branch Oceanographic Institution

9809702 The PI's request funding to plan for the expansion and institutionalization of a marine science academy for high ability high school students within the Harbor Branch Oceanographic Institution. This is a partnership with Lincoln Park Academy, a public academic magnet school. During a well-received pilot program, the LPA students and teachers have come to HBOI for about 1.5 hours at the end of their normal school day. This proposal requests funding to sustain, evaluate and enrich Year 2 of the pilot program and to hold a workshop to improve and expand the program, particularly for minorities and economically disadvantaged students. Considerable cost-sharing from the school district, HBOI and corporate sponsors is provided.